CAREER: Design and Implementation of Fault-Tolerant Distributed Computing Systems

This project focuses on developing efficient techniques for implementing
fault-tolerant distributed systems. Even though checkpointing and
rollback recovery have been known techniques for achieving fault-tolerance
in distributed systems, the intricacies involved in designing efficient
checkpointing and recovery protocols has been thoroughly addressed and
understood only recently. Based on this theoretical foundation,
(i) it is proposed to develop efficient checkpointing and
recovery techniques; (ii) implement a simulation testbed for evaluating
the performance of the newly developed as well as existing checkpointing
and recovery techniques; (iii) integrate the findings
of our research as well as the existing research work on fault-tolerance in the
graduate curriculum. The important expected outcomes from this work are:
(i) an improved understanding of the issues involved in building reliable
distributed systems; (ii) improved techniques for fault-tolerance in
distributed systems based on the hard experimental data as well as strong
theoretical foundation; (iii) integration of the results of our research
in an advanced course in distributed systems which would facilitate
the students not only understand the intricacies involved in building
reliable distributed systems but also help them acquire the necessary
tools and techniques for building such systems.